3-2-1 CONTACT - "Space Week"

Children's Television Workshop(CTW) has produced a special 30 minute program for their "3-2-1 CONTACT" science series on the space program in response to the recent space shuttle tragedy. CTW has extensive footage on the scientific aspects of the space program along with interviews with astronauts Charles Bolden, Sally Ride, Mary Cleave and Franklin Chang-Diaz. The program is hosted by Robin, one of the regulars on "3-2-1 CONTACT." This program, aimed at children ages 8-12, reviews the scientific aspects of space exploration, examines the risks, explores the many- faceted life of being an astronaut, and places the space program in an understandable context for children.